NSF FF: Planning: Community-Grounded Co-Design for Adaptive Reasoning in AI-Shaped Futures

This FINDERS Foundry award explores scenario experiences as a tool for students to navigate uncertainty in environments that are shaped by rapidly changing technologies like AI. Students improve problem solving skills through collaborative discussion and reflection around locally relevant challenges. The project prioritizes educator, caregiver, and student participation to ensure that future educational directions remain informed by classroom realities and community experiences. The project's co-design framework and scenario design briefs may also inform future participatory design efforts in underserved educational contexts.

This FINDERS Foundry award enables community-grounded scenario experiences as an adaptive reasoning tool for rural middle and high school students to navigate technological uncertainty. The project builds upon literature in ill-structured problem solving, collaborative reasoning, participatory design, and scenario-based learning. Facing ill-structured problems has been associated with deeper reasoning, more flexible decision-making, and greater transfer than structured task completion. Scenario-based environments operationalize this by placing learners within evolving situations that require interpretation and iterative reasoning rather than answer retrieval. This project examines how learners interpret emerging technologies like AI through collaborative discussion and reflection around locally relevant challenges. The project also explores how collaborative facilitation may help learners compare perspectives, examine alternatives, and reflect on community impacts.